Annual Conferences and Networking Support for Teacher Professional Continuum (TPC) Principal Investigators

This project will organize and provide logistical support for annual conferences that would serve the TPC PI community and promote dissemination of the research and resources developed by their projects. The project intends to create an Advisory Board of TPC PIs to provide input on the conference agenda and presenters. The project's overall goal is the creation of a community of scholars through face-to-face discussions at the annual meetings and on-going knowledge sharing between meetings through an on-line network facilitated by EDC. The PIs have organized previous successful national conferences of this scale and have the individual and organizational capacity to provide the services described in the proposal.